SGER: Dispersion Engineering of Array of Spheres

Intellectual Merit: This proposal explores the possibility of high-performance metamaterials, with engineered dispersion, that are of high interest in wireless communications ? both at microwave frequencies and at optical wavelengths. The objectives are (1) to discover a new paradigm for metamaterial development using array of dielectric resonators, and (2) to engineer metamaterials dispersion diagrams and their device characteristics utilizing a comprehensive spherical modal analysis. It could result in an entirely new class of metamaterials using electric and magnetic dipole modes developed by arrays of spheres. A new class of all-dielectric metamaterials can enable micro and nano-scale devices that operate at microwave and terahertz frequencies.

Broader Impact:
A wide range of education initiatives will be fully integrated with the proposed research. The goals are to (1) foster integrative research thinking, (2) encourage interdisciplinary education, (3) involve minorities and underrepresented groups in research, (4) target ambitious and research minded high school, undergraduate, and graduate students, and (5) engage the young engineers and top-level industries to maintain U.S. economic preeminence.